Parallel Algorithms for Incomplete Factorization Preconditions

9807172 Pothen Preconditioning is a technique for improving the convergence of iterative methods for solving large, sparse systems of linear equations. The most robust preconditioners available to date are based on computing incomplete factors of the coefficient matrix, i.e., factors that include only a small subset of the nonzero elements created during the factorization. New algorithms for computing incomplete factor preconditioners for unsymmetric and symmetric matrices on serial and parallel computers will be designed and implemented in this project. These algorithms have two phases: in the first symbolic factorization phase, the positions in which the incomplete factors have nonzeros are identified, and data structures for the incomplete factors are set up. In the second numerical factorization phase, these data structures are used to compute the numerical values of the preconditioners in time proportional to the number of arithmetic operations. Without the first symbolic factorization phase, the second phase cannot be implemented efficiently. The new symbolic factorization algorithms rely on a structure theory developed for identifying the positions in which the incomplete factors have nonzero elements. The nonzero elements in the incomplete factors are identified from the path structure of a graph model of the problem. Two graph reduction techniques, transitive reduction and symmetric reduction, are used to reduce the data needed to predict the fill, and thereby to obtain fast symbolic factorization algorithms. The new algorithms can be proven to require less time than the currently used algorithm, and preliminary implementations show that they are faster by an order of magnitude or more in problems with high fill. Methods for solving large, sparse, linear systems of equations are workhorses for solving partial differential equations from scientific and engineering models. Hence these fields will benefit from the algorithms and software developed in this pro ject. These preconditioners will be used to solve specifically the Helmholtz problem in acoustics and Maxwell's equations in computational electromagnetics. The software developed from this project will be integrated with the PETSc (Portable, Extensible Toolkit for Scientific Computing) package from Argonne National Laboratories for wide dissemination.